Upward Transfer Degree Pathways in Computer Science: A Mixed Methods Study of Structures, Policies, and Practices

As the U.S. invests in efforts to build its capacity to lead the world in the development of
artificial intelligence and other areas of computer science, it faces a critical workforce
bottleneck—a shortage of computer scientists to meet workforce demands in industry
and academia. One way to effectively expand the computer science workforce is to
develop a pathway from community colleges to undergraduate and graduate degree
programs. Community college transfer students in computer science are a particularly
high-achieving group, and community colleges are a primary entry point into higher
education for many students. Despite the talents and assets that transfer students bring
to the computer science major, they also face unnecessary barriers at their universities,
which constrain their opportunities to become leaders in their field. The goal of this
project is to produce new knowledge that will address these barriers and guide efforts to
transform university structures, policies, and practices to foster success among
community college transfer students in computer science.

This study will engage a convergent, multi-phase mixed methods design. Drawing on
five years of longitudinal survey and interview data from computer science transfer
students and other key university agents (e.g., university faculty, staff, administrators)
across six campuses in the California State University system, the project aims to
address the following overarching research questions: (1) What are the structures,
policies, and practices that community college transfer students identify in shaping their
degree trajectories in computer science? (2) From the perspective of key university
agents (e.g., advising staff, faculty, administrators), what are the relevant structures,
policies, and practices that shape community college transfer student degree
trajectories and opportunities in computer science? The inquiry will be informed by
social cognitive career theory (SCCT) and theories of administrative burden and
street-level bureaucracy. The quantitative stream of this work will rely on descriptive and
multivariate analysis of student surveys and registrar data. The qualitative stream of this
research will use phenomenological methods, relying on student and university agent
interview data to better understand the experienced phenomena (i.e., structures,
policies, and practices that shape transfer student trajectories in computer science).
This approach aligns with the research questions, which collectively focus on how
participants with varying positionalities (e.g., student, staff, faculty) make meaning of the
structures, policies, and practices that shape community college transfer student
success and degree trajectories.